SBIR Phase I: SHOWME - Systematic Historical Overview of Water Management and Environmental Data

This research will develop a commercial version of the SHOWME (Systematic Historical Overview of Water Management and Environmental) database for a wide variety of waste sites, groundwater basins, and water resource projects. Each SHOWME plot will include a concise informative display of 40-60 chemicals with regulatory limits, well location map, sampling depth, geology, water levels, and well construction details. SHOWME voluminous displays of water quality, geologic, and hydrologic data are designed for expedited site characterization and environmental restoration.
Site workers, regulators, stakeholders, and the concerned public spend hours to understand environmental data. The processed informative displays in SHOWME will help avoid the collection of trivial data and delay in environmental restoration.